Tropical Convection and Wave Studies Using a Trans-Pacific Network of Wind Profilers

The objective of this research is the deployment and operation of three stratospheric.tropospheric (ST) radars in the tropical Pacific to make new measurements of convection, atmospheric waves, and turbulence. The radars will be constructed using components of the larger MST radar originally constructed at Poker Flat, Alaska. Additionally, three boundary layer profilers, recently developed by the Aeronomy Laboratory, will be deployed to measure the field of motion from the surface to near 10,000 feet.